Computer Science, Engineering, and Mathematics Scholarships and Student Support Infrastructure

This project is increasing educational opportunities for low-income, academically talented students by providing scholarships and academic and student support services for full-time students in associate's degree programs in computer science, engineering, and mathematics. Support services include mentoring, advisement, peer tutoring, a required one-week summer orientation and career-identification experience, and informal learning opportunities. Objectives are the recruitment, enrollment, and graduation, transfer or work placement of increased numbers of students, particularly underrepresented groups in science and engineering. Progress is guided by a six-member Advisory Board including a financial aid officer and student services counselor, two representatives of local business, industry or government partners of the targeted programs, a coordinator or department head from one of the targeted programs, and the project director. A nine-member Scholarship Board awards 40 scholarships per year in accordance with financial, cognitive, and non-cognitive guidelines for the selection process.